Doctoral Dissertation Research: Genetic and evolutionary determinants of the immune response in wild primates

Viruses and bacteria are thought to have played an important role in shaping primate evolution, but many open questions remain about how pathogens have acted to change primate genomes and influence trait diversity. More can be learned about the types of pathogens that have been most important in primate evolution, the types of genetic variants that have arisen to deal with these threats, and whether genetic variation in immune genes influences fitness-related traits in the present. This doctoral dissertation project studies the regulation of genes involved in immune defense in a wild primate system, focusing on an intensively studied population for which demographic, behavioral, and physiological data are also available. The doctoral student investigates how natural selection has shaped the gene expression response to pathogens in the past, and examines associations between immune-related gene expression variation, dominance rank, and other physiological characteristics. The project supports student mentorship and training opportunities, international research collaborations, and public science engagement through museum and conference events.

The investigator measures genome-wide gene expression in either the presence or absence of stimuli that model bacterial or viral infection, for 160 individually recognized adult baboons. Differences in immune responses are examined for linkages to genetic differences between baboons, controlling for age, dominance rank, kinship, and other factors that also influence immune function. Integrating these findings with genome sequences from the same baboon population, the project investigates whether genes involved in the immune response to bacteria and/or viruses have been the target of historic or recent selection and tests whether genetic variation that influences the immune response also affects traits that are important to current physiological wellbeing and fitness.